Academic Research Infrastructure: Acquisition of a Distributed Computation and Immersive Visualization Environment for Complex Systems

9601632 Bramley, Randall McMullen, Donald F. Indiana University Academic Research Infrastructure: Acquisition of a Distributed Computation and Immersive Visualization Environment for Complex Systems This Academic Research Infrastructure award supports the acquisition of a high speed SMD computing system operating at a peak speed of approximately 15 GFLops. The research projects supported by the equipment include: 1. The computational study of gravitational instabilities in realistic protostellar disks. 2. The computational study of collisional stellar systems. 3. Gravitational lensing. 4. Schrodinger equations for molecules. 5. Sedimentary basin and whole planet evolution modeling. 6. Quantum chromodynamics. 7. Global illumination simulations of complete, large scale structures (bridges, etc.).